Physical and Fractal Models for Sediment Transport and Deposition

Temporal patterns of deposition in fluvial systems are controlled by interactions among internal and external parameters. Many of these interactions are complex and may include non-linear feedbacks. Recent developments in the study of non-linear dynamical systems and fractal geometry have made it possible to test for the existence of non-linear behavior. We propose to examine temporal distributions of sediment transport and deposition in gravel bed rivers to determine (1) whether they exhibit a hierarchy of discontinuous behavior (i.e. fractal) and (2) whether depositional events and patterns respond only to changes in hydraulic parameters or are also associated with non- linear feedback mechanism. Our research will be based on field measurements made in gravel-bed streams and on data sets on depositional events compiled from the literature and our previous research.